SBIR Phase II: Development of Renewable Nanoparticle Platform for Green Energy Production and Storage Applications

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project will be in lowering the overall cost of lithium-ion batteries. Material cost reduction drives greater adoption of technologies using batteries such as electric vehicles and storage systems while increasing the use of renewables. Cathode material is a battery's largest cost contributor, and with the market growing 10+% year-over-year, producers are having to spend millions of dollars in plant expansions to meet this increased demand. Technology solutions that allow cathode material producers to cost effectively expand current production capacity without investment or sacrificing quality or performance are immediately needed in this industry. Current industry processes require lengthy high-temperature production steps that consume large amounts of energy throughout the production process. This phase II project is focused on developing a "one-pot" manufacturing process that will address the current market priorities of lowering production costs, shortening manufacturing times, increasing production yield and using sustainable materials, allowing cathode producers to significantly increase profit margins while addressing demand for increased production. More broadly, lower battery costs will increase the adoption of technologies that utilize lithium-ion batteries and enable greater implementation of other renewable energy sources like wind and solar.

This SBIR Phase II project proposes to build upon the promising feasibility results achieved in Phase I to develop a breakthrough, sustainable, "one-pot" process for the manufacture of cathode materials for lithium-ion batteries. This manufacturing process will capitalize on the opportunity within the cathode production to address its needs for lowering production costs, increasing production capacity, and reducing energy consumption. The Phase II project will involve (i) the optimization of the manufacturing process, as measured by half-cell battery performance screening, (ii) demonstrate doubling throughput and providing cost savings of at least 20% over current production processes for NMC 622, (iii) demonstrate battery performance that is equivalent to, or better than, that of a commercial benchmark in full cell testing, and (iv) design and construction of a pilot reactor.